Technology and Social Change: The Impact of Genetic Forecasting on Attitudes and Values

A central problem in studies in science, technology and society concerns the relationships between technological changes and changes in attitudes and behaviors, values, and social policy. This research aims to monitor one set of such changes, namely, those associated with increased ability at genetic forecasting. Because these technological developments are relatively new, the investigation can attempt to trace their impact on attitudes and values from the beginning. The proposed study will analyse three interrelated developments: reporting about genetic screening and related issues in the mass media; positions toward genetic screening taken by a variety of interest groups; and public knowledge, attitudes, and values related to genetic screening, as measured by personal interviews with a national sample of adults. The project allows 80 pilot interviews and one baseline survey of a national sample, which can be repeated in future years. Developments in biotechnology and the way these developments are communicated to the public will be monitored in selected mass media indexes as well as some specialized publications. A small social survey of potential interest groups likely to represent a spectrum of views will also be undertaken. Results of the project will be disseminated in published papers and public and professional presentations. The data and associated materials will be appropriately archived. This project addresses an important issue. The principal investigator is very well qualified, as are her advisors. It is likely that follow-on efforts will continue after the period of this award. The project is designed well and plans for the development, dissemination, and archiving of results are appropriate. University support is good. An award in the total amount of $144,871 is recommended. Of this amount, $75,000 will be made available immediately.